III: Travel Fellowships for Students from US Universities to Attend ISWC 2010

This project provides partial travel fellowships to students enrolled in U.S.
universities in order to facilitate their attending the 2010 International
Semantic Web Conference (ISWC) held November 7-11, 2010 in Shanghai, China. ISWC
is a major international forum where visionary and state-of-the-art research on
all aspects of the Semantic Web is presented. Priority will be given to students
selected to participate in the doctoral consortium, followed by students who are
first author on a paper accepted at the conference, followed by students who have
other authorship on a conference or related workshop paper. The purpose of this
project is to allow students to share their research ideas, receive constructive
feedback, and develop connections that will enhance their research careers. The
project is expected to support between 10 and 15 students.

Further information can be found at the web page:
http://iswc2010.semanticweb.org/travel-awards